Introducing Fourier Transform Nuclear Magnetic Resonance into the Undergraduate Curriculum

Use of a 200-MHz NMR spectrometer is being implemented into most of the laboratory courses within the department. The practical uses of NMR spectrometers are being introduced incrementally throughout the curriculum by adapting carefully chosen experiments from the research and educational literature. Students first encounter NMR spectroscopy in general chemistry and each subsequent course increases their experience with this technique. By graduation, chemistry majors at this institution are skilled in many of the modern NMR practices. In addition, many biology majors are being introduced to the fundamental aspects of NMR spectroscopy. A new course incorporating the advanced theory and practice of NMR spectroscopy and X-ray crystallography is being implemented, allowing students an opportunity to explore these techniques in greater depth than is typical in undergraduate departments. This instrument also is playing a central role in several undergraduate research projects. Finally, a workshop in spectroscopic techniques for high school chemistry teachers is being offered. Thus, this project integrates technology into the undergraduate curriculum, advances student research, and aids in the continuing education of pre-college teachers.